Measuring Vortex Force and Turbulence Fluxes in the Oceanic Surface Boundary Layer

0002331 Lien/UW

The intent of this study is to use a novel instrument, the
Electromagnetic Vorticity Meter, to directly measure the flow vorticity
which, in combination with the Stokes drift associated with the surface
waves, gives rise to the "vortex force," identified by theoretical
explanations of roll vortices in the mixed layer (Langmuir cells) as the
primary cause of these vortices. An additional objective is to
determine which component of vorticity, vertical or horizontal, is most
critical for Langmuir cell formation and hence distinguish between
competing theories. The vorticity measurements will be supplemented
with observations of temperature, salinity and turbulence parameters.
While theories of Langmuir cells have existed for a long time, direct
verification of their central hypotheses with field observations has
been lacking because of the difficulty of directly measuring vorticity
in the mixed layer. This study holds out the possibility of being able
to make such measurements. A better understanding of Langmuir cells
will help oceanographers develop a clearer picture of mixing in the
upper few meters of the ocean and may lead to improved representations
of such mixing in computer models of oceans and climate.